REU Site in Minority Group Demography

This award provides funds to continue an REU Site at the Population Research Center at the University of Texas, Austin. Demography is a technical field within sociology in which minorities are underrepresented. This underrepresentation may stem from weaknesses in the typical undergraduate curriculum, combined with low enrollment of minority students at colleges with strong demography programs. The University of Texas, Austin supports a strong, active research program in minority group demography, which has had notable success in training minority demographers, especially Mexican-Americans. In the past four years, the REU Site summer training program has brought these skills to a mix of undergraduate students from the University and other smaller, non- research oriented schools in the Southwest. As before, this REU Site has three specific objectives: (1) to provide undergraduate sociology students with more intense technical demographic training than is currently available in most undergraduate sociology curricula; (2) to provide "hands-on" experience with faculty-led research teams conducting externally- funded research projects on topics related to minority-group demography; and (3) to encourage undergraduate participants to develop a scholarly paper based on their summer research experience and to present it at a regional demography group meeting after their summer program. Although issues regarding the ethics of the scientific research enterprise have been routinely covered in previous years, they will be incorporated in a more deliberate manner in the upcoming years. The ethics component will include: (a) issues regarding the use of human subjects, confidentiality of data, and privacy in the execution of social-demographic research; (b) issues regarding the publication of scientific research; and (c) issues involved in grant applications and grant reviewing procedures. This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.